Fabrication of Masters for Extreme Precision NanoImprinting of Optical Gratings

Thin film deposition processes are capable of nanometer and even
atomically precise fabrication of layered structures. While the
capabilities of deposition are well developed to the point of routine
use by the optics and semiconductor devices manufacturers, application
of deposition methods to extreme precision patterning and lithographic
fabrication has received, at best, limited consideration.
This degree of precision is especially needed in the fabrication of
sub-wavelength diffractive optics.

This study is aimed at a preliminary evaluation of the potential of
multilayer stacks to be fabricated and processed into three dimensional
master stampers for molding or casting high aspect ratio, nanoscale
features in polymers. The vertical dimension of the pattern is produced
by cleaving the material, polishing the cleaved surface as required, and
chemically etching back selected layers of one material type to produce
a bi-level topography. Not only can stamps for one-dimensional
bragg-type gratings be produced by deposition, but curved stamps (used
to mold sub-wavelength lenses) can be produced by deposition onto curved
surfaces (e.g. optical fibers or anisotrpically etched silicon.) Layers
of from 5 to 200 nanometers will be deposited using and extending our
recent electroplating methods that are noted for increased mechanical
strength, reduced grain size and the potential for producing films on
the order of one nanometer roughness.

One of the most significant outcomes of this study would be the
successful demonstration of electrodeposition to fabricate precisely
controlled layers as an alternative to the more traditional, but much
more expensive, physical deposition methods of sputtering and
evaporation.